Acquisition of Mass Spectrometers for the Retrieval of High-Resolution Records of Global Climate Change

9512334 Edwards This grant, as part of the Academic Research Infrastructure(ARI) program, provides $500,000 as one-half support of costs of acquiring three new mass spectrometers for the Minnesota Isotope Laboratory. Total costs are jointly supported including $420,000 from the Earth Sciences Instrumentation and Facilities Program's ARI allocation, $80,000 from the Division of Ocean Sciences Marine Geology and Geophysics Program and $500,000 from the Unitersity of Minnesota. This group's research focuses on high resolution studies of global and regional climate change as recorded in the isotopic composition of marine and freshwater carbonates including, coral skeletons, calcareous sediments, speleothems and ostracod tests. Specifically, the instruments that will be purchased include a gas source stable isotope ratio mass spectrometer (SIRMS) equipped with a Kiel device, a high transmission efficiency thermal ionization mass spectrometer (TIMS) and an inductively coupled plasma sector mass spectrometer (ICP-SMS). Additionally, the TIMS and ICP-SMS will provide the necessary analytical capabilities for continued development of high-resolution dating techniques (U/Th) and new proxies for climatic variables such as temperature and precipitation (Sr/Ca and U/Ca ratios in corals, speleothem growth rate, Sr/Ca, Mg/Ca and stable isotope composition of ostracods). Furthermore, the TIMS will allow developmental work on recent breakthroughs in chronometry using the Uranium/Protactinium (U/Pa) system. Taken as a whole, these instruments will be provide the necessary sensitivity and analytical speed to retrieve the next generation of high resolution local and regional climate records for testing theories about the causes of climate change and for testing models designed to simulate past and future climatic conditions. ***